Using a National Network to Develop Leadership Skills for Implementing Human Genetics and Bioethical Decision-Making in Secondary School Biology Classroom

This Leadership Activities project will provide enhancement and professional development experiences for 40 outstanding biology teachers nationwide. Former NSF Honors Workshop participants will help to identify the Summer 1986 participants through a thorough selection process. Documentation of the individual participant's entering knowledge and the competencies developed through project activities will contribute to the overall project evaluation. Upon completion of the project, the participants will become eligible for membership in the National Network to Implement Human Genetics and Bioethics education. The project's four week summer component will be offered at Ball State University and will be followed by an academic year component designed to assist participants in achieving project goals. The overall goals will provide the participants with renewal and updating in human genetics and bioethics education, use Network teachers to implement inservice workshops that will disseminate knowledge and instructional materials to peers of the 1986 participants, and to evaluate the impact of the National Network in implementing project goals.